STATS4STEM.ORG: Enriching STEM education through real-world data sets, computing, and statistical analysis

The collection of statistical learning resources being made available by this NSDL project enables both introductory statistics and traditional STEM educators to infuse real-world data and statistical computing into their courses. Each learning resource has a complimentary web-based formative assessment that contributes to understanding of teacher usage while measuring the impact of using digital resources on student learning. To enhance current statistical and data analysis capabilities within the NSDL, the site also serves as a central repository for learning materials that pertain to R, the open source language for statistical computing and graphics. The site also provides a web-based interface for R called R-web, providing a barrier-free computing environment for all. Finally, the project provides an opportunity for students to create a repository of STEM data sets that meet the needs of the introductory statistics and larger community of STEM learners.